Partial Support for the SNDR Planning Document Entitled, Natural Disaster Reduction: A Plan for the Nation

9530532 Padovani This grant is for partial support of publication costs for the Subcommittee on Natural Disaster Reduction (SNDR) strategic and implementation plan document entitled, "Natural Disaster Reduction: A Plan for the Nation". The SNDR is a multi-agency working group that is part of the Committee on Environment and Natural Resources (CENR) of the National Science and Technology Council, which was established by the President on November 23, 1993. The SNDR coordinates U.S. federal agency participation in the International Decade for Natural Disaster Reduction (IDNDR). The SNDR is made up of 19 member agencies and departments, cooperating to increase the overall effectiveness and productivity of U.S. Federal agency programs for reducing deaths, injuries, and economic and social disruptions resulting from natural disasters, such as the devastating Northridge earthquake which struck the Los Angeles region on January 17, 1994. Lessons learned in the Northridge earthquake are an important part of this document. This grant is a component of the National Earthquake Hazard Reduction Program. ***